Building a National Database on the Retention and Graduation Rates of Underrepresented Minority SMET Majors

9903426
This proposal seeks funding to create a database on retention and graduation rates for minority students in SMETE disciplines. While the data collection efforts will focus on Alliance For Minority institutions, it will also try to collect data from other universities and colleges. Overtime, the project seeks to provide an important bseline for observing changes and trends. Using the database, the project will develop reports and analyses on the linkages between programs and outcomes.